Classification of Noncommutative Projective Surfaces

The objective of this project is to make progress on parts of the
classification of noncommutative projective surfaces. This is an
important problem, because many interesting new phenomena occur for
surfaces that are absent for curves; thus understanding the surface
case better will advance our understanding of noncommutative
geometry in general. First, the PI plans to complete the
classification of birationally commutative surfaces---which are
noncommutative surfaces with a commutative function field of
transcendence degree 2---in terms of the process of naive
noncommutative blowing up. Next, one wants to study noncommutative
surfaces containing a commutative curve of points---we will start by
examining a class of subalgebras of elliptic regular algebras of
dimension 3, which may be related to M. Van den Bergh's different
notion of noncommutative blowing up. The PI plans to study fat point
modules, about which there are many foundational questions.
Finally, one should study the generalization of naive blowing up to
higher dimensional noncommutative varieties.

Noncommutative projective geometry is a relatively new subject,
which attempts to use some of the same intuition and techniques
underlying commutative algebraic geometry, but in the noncommutative
setting. Modern physics tells us the importance of considering
operations that may not commute with each other, which means it
matters which order you perform them. For example, one
interpretation of the celebrated Heisenberg Uncertainty Principle is
that position and momentum do not commute. There are many other
connections between noncommutative algebra and physics. This
project hopes to gain a better abstract understanding of certain
kinds of structures in algebra (noncommutative graded rings of low
dimension) which include among them some famous examples, such as
the Sklyanin algebras, which are related to the study of the
physical world.